Operations Support for DSV ALVIN

Woods Hole Oceanographic Institute will operate the Deep Submergence Vehicle (DSV) ALVIN during 1990 in support of NSF-funded research projects. The DSV ALVIN is a 7.1 m National Oceanographic Facility that is owned by the U.S. Navy and is jointly funded by NSF, NOAA and ONR for oceanographic research. Support for the DSV ALVIN is provided by each agency according tothe terms outlined in a joint Memorandum of Agreement. The ALVIN Review Committee, which is composed of scientists and agency representatives, provides guidance for operations of the submersible. The submersible is carried by the R/V ATLANTIS II. The support vessel and the submersible operate worldwide, and the submersible is capable of diving to a depth of 4,000 m. Operation of a submersible requires highly specialized equipment and extensive support from both the support ship's crew members and the submersible team. Crew members for the DSV ALVIN are highly trained to ensure proper maintenance and saftey for operations. The support ship is outfitted with a special A frame on the stern that allows the submersible to be safely deployed.